Boundary geometry and asymptotics in several complex variables

Abstract

Award: DMS-0072237
Principal Investigator: David E. Barrett

Professor Barrett will investigate various topics in complex
analysis. One topic to be studied is the behavior of two
different systems of partial differential equations implementing
deformation of a real hypersurface in two-dimensional complex
euclidean space by the Levi-form of the hypersurface. The
systems are analogous, respectively, to harmonic-mapping heat
flow and to the Ricci-flow on the space of conformal metrics, but
these particular systems have special features (the role of
Lorentzian geometry in the target space and the inclusion of
lower-order terms which are not conjugation invariant in the
source space) that introduce new phenomena and difficulties. The
associated steady-state system has known applications to function
theory and engineering, and the study of the time-dependent
versions given above may lead to new insights into analytic
continuation. A second topic to be studied is the boundary
behavior of the Bergman kernel function (off the diagonal) and
Bergman representative coordinates on domains with corners, with
particular interest in the case of generic intersections of
strictly pseudoconvex domains (the case of intersecting balls
serving as a key model problem).

Professor Barrett will investigate various problems involving
multiple parameters (the parameters are understood to lie in the
so-called complex number system, a widely-used extension of the
standard number system). One topic involves the study of systems
of partial differential equations which serve to flatten a
surface in the parameter space; sometimes the equations push the
surface to an equilibrium configuration (the situation is
somewhat analogous to that of a soap film attached to a fixed
wire boundary), but sometimes the surface breaks before reaching
equilibrium (for example, this will happen if there is no
available equilibrium configuration). The computation of
equilibrium configurations for these problems (or the
documentation that no equilibrium exists) is important in
classical function theory, and is also a central topic in the
engineering discipline known as "H-infinity control theory." A
second topic to be studied is based on Stefan Bergman's method of
finding a sort of "ideal form" for a region in complex
multiparameter space. In the one-parameter setting Bergman's
method tells us how to perform the useful task of smoothing out
corners appearing in the boundary of the region (such smoothing
is of fundamental importance for example in classical
aerodynamics); the proposed research will examine what happens to
corners in the multi-parameter setting.